CAREER: Divergent Transfer Trajectories in Computer Science: A Mixed Methods and Person-Centered Exploration of (In)Equity and Community College Transfer Pathways

Northern Arizona University will study transfer pathways from community college to CS majors in the University of California (UC) system to provide the first comprehensive picture of degree and early career trajectories followed by transfer students in CS. Given the financial reward associated with computer science (CS) degrees, increasing diversity in CS majors has important implications for equity within society. One strategy for recruiting a diverse workforce in CS is to build accessible pathways from community colleges to undergraduate CS degree programs. Community college transfer students represent a diverse, high-achieving, and often untapped pool of talented emerging computer scientists. Thus, supporting their success is essential to broadening participation in CS, and future research is needed to understand how community college transfer students navigate their CS degree pathways and obtain success in reaching their educational and professional goals.

This mixed methods study will rely on longitudinal data in the form of surveys, student records, and ethnographic interviews, beginning from the time transfer students enter their UC campus and following them as they matriculate through their CS degree programs. Specific analyses will be guided by two overarching questions: (1) What trajectories do community college transfer students follow in their computer science bachelor’s degree pursuits? (2) How do community college transfer students following varying degree trajectories describe and make meaning of their experiences? Person-centered statistical analyses and ethnographic interviews will also explore variation by gender, race/ethnicity, and socioeconomic background. In particular, this study will add nuance and complexity in terms of how we understand community college transfer student success, pushing us to define success beyond traditional metrics (e.g., degree efficiency; four- or six-year graduation rates; etc.). In doing so, this study will build a more robust knowledge base that can contribute to efforts to advance equity in CS by supporting community college transfer students as they exercise agency throughout their degree programs and obtain their professional goals.